CPMSA: "Project SUCCESS-The Surry, Sussex, Charles City, and King and Queen Education Consortium Educating Students for Success"

The four small, rural Virginia counties of Surry, Sussex, King and Queen, and Charles City, have formed a consortium identified as Project SUCCESS. This consortium was organized to address the historical pattern of academic under-achievement of its public school students, especially minorities. The project's academic focus is science and mathematics. The primary intervention strategies will be in the following categories: 1) professional development for teachers; 2) curriculum revision; 3) student enrichment; 4) parental involvement; and 5) community involvement. It is to be noted that the objectives and activities described for Project SUCCESS have been developed in consideration of Virginia's Statewide Systemic Initiative in science and mathematics, VQUEST (see Appendix A for a further explanation of this relationship to VQUEST). This grant application is being submitted to request support for the staff development and student enrichment aspects of the consortium plan. Activities in these categories will include summer programs for teachers and students, student Saturday Academies during the academic year, informal education experiences, parent and community seminars on the importance of science and mathematics for today's citizens, increase participation of teachers in professional science and mathematics organizations, more student participation in science fairs, workshops to increase the types of science and mathematics assessment methods used internships, and other interactions between students and professionals to increase student awareness of careers in science, mathematics and relate fields. Support is being sought to continue staff development activities focused on summer "Laboratory Institute" for three additional years. ***